International Postdoctoral Fellows Program: An Integrated Approach for Producing Detailed Thermal and Fluid Histories of Hydrothermal Systems

This award is under the International Postdoctoral Fellows Program, which enables U.S. scientists and engineers to conduct three to twelve months of research at foreign centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a four-month postdoctoral research visit by Dr. Carter D. Hull of Florida State University to work with Dr. Gudmundur Palmason at Orkustofnun (Icelandic National Energy Authority) in Iceland. This research project takes an integrated approach for producing detailed thermal and fluid histories of hydrothermal systems. Fluid, vein mineralization, and reservoir rock samples from geothermal systems will be collected, identified, and analyzed during the four month period. Chemical geothermometers will be applied and multicomponent chemical equilibrium models developed with the fluid analyses. Light-stable isotopic ratios and the activities of radionuclides in the 238U and 232Th decay series will be measured for selected fluids and minerals. Light-stable isotopic data can be used to characterize fluids and applied in studies of water-rock interaction. The ages of hydrothermal minerals, redistributions of radioisotopes, and residence times of fluids in the reservoir can be calculated from disequilibrium in the U-Th series. U-Th disequilibrium and the distribution of radionuclides in hydrothermal systems can be very useful as natural analogs for the transport and sorption of radionuclides in repositories. This award recommendation provides funds for a stipend of four months, international travel, an allowance for in-country travel, chemicals, and excess baggage and an administrative allowance for Florida State University.